Workshop on Internet Economics; March 9-10, 1995; Cambridge, MA

9509244 McKnight Partial support is requested for a two-day workshop on Internet economics that will convene technologists, economists, business leaders and policy makers to discuss the Internet as an economic system. It will bring together researchers and practitioners across disciplines to help understand Internet economics in order to plan for the growth of this medium. The goal of this workshop is to plan and develop a framework for understanding the Internet as a self-sustaining economic system through panels and facilitated discussions.